CAREER: A Two-Tier Approach for the Analysis and Evolution of High-Integrity Software Product Lines

Proposal Number: CCR-0133956

CAREER: A Two-Tier Approach for the Analysis and Evolution of High-Integrity
Software Product Lines

PI: Gerald C. Gannod

The objective of the research component of this project is to develop software
architecture analysis and software reverse engineering techniques that support
the evolution of existing software into software product lines with an emphasis
on high-integrity systems. To this end, this research will first involve the
development of an approach for analyzing software from both the architecture and
component views in order to support assessment along different quality attribute
dimensions. The approach will consist of models for static and dynamic analysis
as well as simulation to determine level of compliance with quality attribute
constraints. Second, this research will involve the development of a methodology
for modifying and evolving software at both the architecture and component levels
in order to ensure compliance with different quality attribute constraints and
goals. For the software architecture community, this research will address a
need for analysis approaches that allow software architects to assess the extent
to which a software architecture meets various quality concerns. In addition,
the results of this research will facilitate the long-term evolution of a software
architecture based on long-term product-line goals. For the software reverse
engineering and maintenance community, this research addresses the need for
approaches that allow a software maintainer to determine the extent of the
support for various quality attributes by individual components and provides
a technique that facilitates component modification in order to ensure compliance
to quality constraints.